Operation of the Cornell High Energy Synchrotron Radiation Laboratory (CHESS)

9713424
Gruner
The Cornell High Energy Synchrotron Source (CHESS) operated by Cornell University since 1978, is a national user facility that provides high energy X-ray synchrotron radiation services to the scientific community. Experimental studies carried out at CHESS impact the scientific fields of condensed matter physics, chemistry, materials science and engineering, biology, and geology. Integral parts of the CHESS program are MacCHESS, the NIH-funded macromolecular resource, and the NSF-based National Facility for High Pressure Research. The program at CHESS is designed to enhance the national science infrastructure by taking advantage of unique aspects of the CHESS environment to provide research capabilities not available at other synchrotron x-ray sources.

CHESS is a user oriented facility which accepts proposals from all qualified investigators on a comptetive basis. In addition to providing operating costs, this project supports the development of synchrotron radiation facilities using high power photon levels provided by the Cornell Electron Storage Ring (CESR). At present, more than 500 individuals per year from universities, industries, and national laboratories, conduct research on the public experimental stations provided by CHESS.

Under this award CHESS staff will continue to operate CHESS to build on current user programs. These programs include enhancing existing capability, providing new user capabilities in materials and biological sciences, the development of advanced instrumentation, and the integration of research and education through the training of students.
%%%
***